Texas Algebraic Geometry Seminar (TAGS) 2009; College Station, TX; Spring 2009

ABSTRACT

Principal Investigator: Rojas, J. Maurice
Proposal Number: DMS - 0915235
Institution: Texas A&M Research Foundation
Title: Texas Algebraic Geometry Seminar (TAGS) 2009

The Texas Algebraic Geometry Seminar (TAGS), sponsored by Texas A&M University, the University of Texas at Austin, and Rice University, is designed to enhance both the educational and the research atmosphere of the growing community of Texas algebraic geometers and researchers in related areas. This proposal is for partial funding of this important conference. The conference is committed to bring researchers of national and international stature to Texas to discuss research in algebraic geometry and to interact with mathematicians from Texas and surrounding states. A principal area of mathematics, algebraic geometry is also the source of algorithms behind much of modern technology. For example, a thorough technical understanding of cryptography, coding theory, or quantum computing is impossible without the language of algebraic geometry.

The conference makes it possible for the community of algebraic geometers from Texas and surrounding states (a large geographic region) to meet and share new results on a regular basis. This both stimulates individual research and generates productive cooperative efforts between schools. Also, the conference is dedicated to the development of graduate students and young faculty in algebraic geometry. Finally, the unique environment at Texas A&M, where classically trained algebraic geometers work on applied problems with impact in areas such as signal processing and computer science, insures that the conference will have an impact that goes well beyond mathematics.